Application of Space Geodesy-The Global Positioning System (GPS) Methods for Earthquake Studies, Award in Indian Currency

Description: This project supports the participation of Dr. Roger Bilham of the University of Colorado and Dr. V.E. Nagar of the Geodetic and Research Branch of the Survey of India in field research in India. The objective is to use GPS geodesy to determine the vertical and horizantal positions of survey markers spaced at crucial locations across the active Himalayan deformation that marks the collision zone between the Indo/Australian Plate and the Euro/Asian Plate. This is part of a larger project in which Dr. Bilham is also conducting similar studies in Nepal and Pakistan to cover various segments of the Himalayan deformation. Scope: This project allows for valuable cooperation between the Indian team and the U.S. team. Dr. Nagar is more familiar with the Indian conditions and is better prepared for long term data acquisition in that country, while Dr. Bilham can provide coordination with the neighboring countries as well as supply sophisticated instruments and broader expertise in measuring techniques. The project fits well within the U.S.-India Cooperative Science Program criteria.